Plasma Enhanced Chemical Vapor Deposition of Yttrium Barium Copper Oxide Superconducting Material

The reproducible crystal growth of thin films with the correct stoichiometry and appropriate morphology is the key to the commercialization of devices incorporating film high temperature superconductors. Metal oxide chemical vapor deposition (MOCVD) has the potential to meet these needs coupled with relative ease of scaling to manufacturing volumes. However, recent work on MOCVD has been plagued by two major limitations: (l.) films grown at temperatures less than 800C are amorphous mixtures of oxides, fluorides and/or barium carbonate and (2.) as-deposited films exhibit cauliflower-like morphology which is indicative of low surface mobility growth. Surface mobilities can be increased without elevating the temperature of the substrate through the use of a plasma. Moreover, plasma assisted laser ablation, sputtering and reactive evaporation have already been used for the in-situ growth of superconducting thin films at temperatures as low as 400C, even when BaF2 has been used as the Ba precursor. These results suggest that plasma enhanced chemical vapor deposition (PECVD) may effect the in-situ growth of superconducting thin films with the existing reagent technology. The goal of this first phase of research is to demonstrate the PECVD of in-situ superconducting thin films of YBaCuO at substrate temperatures below 600 C.